Participant Support for the 2026 American Society for Composites 41st Annual Technical Conference; Madison, Wisconsin; 28-30 September 2026

This grant provides travel support for participating students to the 2026 American Society for Composites (ASC) Annual Technical Conference; Madison, Wisconsin; 28–30 September 2026. The ASC conference is an annual event gathering researchers in composites since 1986. The funds will be used to provide travel awards for students in STEM to attend ASC 2026. The funds will also be used to develop community building and professional development activities that include workshops, mentoring opportunities, panel discussions, and poster presentation sessions for these students. This grant will provide unique opportunities for students in STEM from US institutions of higher education to i) engage with researchers from academia, industry, and governmental research organizations related to advanced composite materials and structures, ii) create a network of young researchers that can establish future partnerships and leadership nationwide, and iii) advance scientific knowledge in the mechanics and manufacturing of composite materials through the incorporation of new research perspectives.

The grant will provide unique opportunities for students in STEM to attend the 41st ASC Annual Technical Conference, the premier venue for the dissemination of fundamental research and technology advancements in the composites field in the United States. Their participation in this event will broaden the involvement of emerging researchers in composite materials, foster innovative approaches to addressing future technical challenges, and promote retention and workforce development in engineering and advanced manufacturing fields.

This project is jointly supported by the Mechanics of Materials and Structures (MoMS) program, the Advanced Manufacturing (AM) program, and the DMR Polymers program